Logic and Computability

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The research proposed centers on investigations of the structures of sets and
functions ordered by relative complexity of computation. Particular emphasis
will be placed on issues of definability and automorphisms. Also included in
this area is the analysis of the relations between the difficulty of computing
functions and other issues such as rates of growth, complexity of their
definitions in arithmetic and the strength of axiom systems needed to prove
their existence (reverse mathematics). The emphasis in reverse mathematics
will be on analyzing basic combinatorial, model theoretic and set-theoretic
principles that seem to lie outside the scope of the standard theories
studied. In addition, a new approach to the issue of classifying the
complexity of mathematical constructions based on computability theoretic
notions will be developed. This approach should allow applications to
uncountable and higher order structures that are either out of reach of
current approaches or (as in the case of analysis on the real numbers) only
handled through coding into countable structures.

The proposed project includes research into a broad range of topics in
computability theory and logic both theoretical and applied to other areas of
mathematics and computer science. At the foundational level, this work will
illuminate the nature of relative complexity of computation, the strength of
axioms needed to prove standard mathematical theorems and the relations
between these areas. In practical terms, results in this area (computable
mathematics and model theory as well as reverse mathematics) at times indicate
that there are no algorithms for certain important tasks or that more
information than might have been expected is needed to write programs
calculating the desired results. The work related to automata theory and
automatic structures is based on a very resource-limited model of computation
that is often relevant to practical computing problems. The theoretical and
foundational analysis of structures whose basic relations and functions are
computable by such automata should also eventually be of practical
significance. The primary focus in the most applied areas to be investigated
will be the logical and mathematical foundations of hybrid (continuous and
discrete) control theory as well as the practical implementation of algorithms
for these subjects based on the theoretical work being done. Here the issue is
to understand how to mathematically model systems that include both digital
(discrete) input and logical constraints as well as analog (continuous)
information and constraints.